The Tamagawa Number Conjecture

Abstract for award DMS-0401403 of Flach

The aim of the project is to explore the usefulness of Taylor-Wiles systems
for establishing cases of the Tamagawa number conjecture on special values
of Hasse-Weil L-functions. Following the initial breakthrough by Taylor and
Wiles this has been done in the case of the adjoint L-function of elliptic
modular forms in joint work with Diamond and Guo. The next cases we intend
to look at are those where the Taylor-Wiles method has been worked out but
the relationship to values of L-functions is still missing, notably Siegel
modular forms of genus 2, Hilbert modular forms and possibly unitary groups.

L-functions figure prominently in modern number theory, or even in all of
pure mathematics if one takes as a benchmark the seven Clay millenium
problems, two of which are directly concerned with L-functions. In high
school algebra one draws the solution set in the plane of an algebraic
equation in two variables x and y. One may also look at the solutions in
rational numbers, integers or integers modulo a prime number. L-functions
are built from the number of solutions modulo primes (of any set of
equations in any number of variables) and are expected to give information
about solutions in rational numbers. Solving equations in rational numbers
is notoriously hard, whereas values of L-functions are often very
computable, so such a relationship lies very deep. The primordial example
is of course the conjecture of Birch and Swinnerton-Dyer, one of the
millenium problems. As often in mathematics, one generalizes a problem in
order to understand it better but the tradeoff is an increasingly abstract
framework ("cohomology" in this case). On the positive side, other
instances of the generalized framework may actually be provable with
current methods, and this is what the project aims to explore. The aim is
to prove new cases of the expected special value formula for L-functions,
using the relatively recent method of Taylor-Wiles systems.